CAREER: Integration of Research and Education in the Study of Analysis and Partial Differential Equations in Carnot-Caratheodory Spaces

ABSTRACT
--------

The research component of this proposal deals with the study of
solutions to certain non-linear systems of Partial Differential
Equations which arise in connections with the geometry of
Carnot-Caratheodory spaces. More precisely, we will study the
sharp regularity of solutions to quasilinear subelliptic
systems, and apply the results to the theory of quasi-regular
maps in Carnot groups and in more general spaces.
We will study critical points of the energy for maps with
target in the Heisenberg group and with domain in a Riemannian
manifold or in the Minkowski space.
The analysis of boundary value problems for sub-elliptic
operators, and the study of qualitative and quantitative
properties of solutions of some non-divergence form non-linear
equations, are also part of this proposal.
The educational component of this proposal is centered around
the creation of Integrated Research Groups, in which
undergraduate and graduate students work on basic research
projects supervised by the PI. One of thegoals of this
activity is the dissemination of information, through a
web-based data-base, seminars, and publications.

Partial differential equations are used to provide a
mathematical model for real-life phenomena, such as
chemical reactions, force-fields or conductivity. Such models
allow both to better understand the phenomena and to try to
forecast the future behavior of the system under study.
Roughly speaking, smooth solutions to PDE's correspond to
systems which can be well understood and modeled. The study
of regularity of solutions consists in finding smooth solutions.
The equations described in this proposal appear in the study of
motion under constraints (as in Robot arms motion),
and in the study of diffusion in a non isotropic media.